Mathematical Sciences: Computational Group Theory

The objectives of this research activity are, firstly, to develop some very general, all purpose, algorithms to help study groups given by generators and defining relations; secondly, to compile computer-generated libraries of examples, references and the like, pertaining to the general subject Combinatorial Group Theory; and thirdly to provide a vehicle for the dissemination of new results and advances in the field. In the main, the program that will be developed will be designed to provide information about a wide variety of properties of groups. Combinatorial Group Theory is an important in abstract algebra, and with close connections to topology, logic and wide variety of other disciplines as well. Its study leads to a deeper understanding of structures underlying many aspects of science.